Enhancement of Analytical and Organic Chemistry with a 60- MHz Nuclear Magnetic Resonance Spectrometer (NMR)

The objective of this project is to enhance the preparation of undergraduate chemistry and other science majors at Bradley University by incorporating the use of a 60-MHz NMR into the chemistry laboratories associated with a number of courses. This instrument replaces and upgrades an obsolete NMR with limited capabilities, allows the introduction of new experiments which illustrate principles discussed in lectures, and expands and updates students' laboratory experience to include new techniques and experimental capabilities. The anticipated outcome of this project is the upgrading and updating of laboratory courses in organic, analytical and physical chemistry, as well as the enhancement of independent study projects. The NMR will enable students to understand better the principles and practice of instrumental chemical analysis and determination of molecular structure.